CSEDI: Collab. Res.: An Interdisciplinary Investigation of a True Polar Wander--Improved Paleomagnetic Constraints on Models for Long-Term Rotational Dynamics

9632858 Gordon The PIs propose an interdisciplinary study to improve paleomagnetic estimates of polar motion and their uncertainties, and to derive better models of the effects of geophysical processes on long-term rotational dynamics. The PIs will combine observational paleomagnetic data used to constrain polar wandering curves, and geodynamic modeling focused on discriminating among alternative geophysical processes that may have affected true polar wander in the past 25 Myr. ***